Conference on the Interface between Atomistic and Continuum Theories

Chen
0724936

The investigator and co-investigator organize a conference
on the topic "The Interface between Atomistic and Continuum
Theories" under the auspices of the Society for Natural
Philosophy. The conference themes address mathematical issues
that arise in the development of continuum-level governing
equations (balance laws and constitutive equations) for materials
based on atomistic considerations. The focuses are on the
relationships between the relevant physical principles used at
atomic and continuum levels, as well as consistency of the
resulting theories. Basic understanding of the characteristics
of the theories across different length scales is essential for
developing analytical and computational models that are capable
of describing a broad range of material behaviors. The speakers
invited to participate in the conference are leading researchers
in mathematics, physics, chemistry, and engineering. These
speakers present their current research on analysis, modeling,
and simulations for various material systems. The conferences of
Society for Natural Philosophy have a history of being
cross-disciplinary endeavors. The works presented at these
conferences have embraced a broad spectrum of research topics,
with common emphasis on the application of rigorous mathematical
analysis to the study of physical systems.

The conference contributes directly to building a solid
theoretical foundation for rapidly developing technological areas
such as nanotechnology, novel materials, and large-scale material
simulations. As many nations are heavily investing in these
technological areas, the most significant and lasting
developments can only result from progress at fundamental levels.
The theme of the conference reflects the current trend of using
advanced mathematical tools to address critical problems arising
in the modeling of material behavior across widely varying length
and time scales. The conference promotes the participation of
junior researchers and students, and exposes them to a novel,
important, and rapidly expanding area of science and technology.